POWRE: Combined Corrosion Assessment Techniques for Evaluating the Effect of Free Chlorine on Aged Cast Iron Water Distribution System Pipes

9870435 Miller The addition of disinfectants such as free chlorine to drinking water can greatly increase corrosion of the distribution system pipes. Many small communities which do not currently disinfect their drinking water may soon need to do so under the proposed Ground Water Disinfection Rule. It is anticipated that the sudden addition of a strong oxidant such as free chlorine will lead to additional corrosion of the aged iron pipes found in these small water systems, but this area of water chemistry has not been well studied. In this project, several traditional and newer corrosion assessment techniques will be applied to the study of iron corrosion. Pipe loop studies will be combined with electrochemical analysis and material (scale) analysis to give a more complete understanding of the chemistry of water distribution systems, including the chemistry of scales. It is anticipated that the results of this project will help the water community to better interactions between oxidants and pipe scale. This project will allow the P.I. to develop experience in the use of analytical techniques which have traditionally not been applied to the study of corrosion in aged pipes. The electrochemical analytical work, in particular, will expand the research capabilities of the P.I., and will allow her to do future work involving electrochemistry and the application of this field to Environmental Engineering. ***